Longitudinal Learning of Viable Argument in Mathematics for Adolescents

The project will examine learning in eighth grade mathematics with a specific focus on students' learning of reasoning and proof. The intervention builds on a prior study in algebra that demonstrated increases in students' knowledge of argumentation and their performance on mathematics assessments. This project will extend the use of the argumentation intervention into all eighth grade content areas. The investigators will also address support for teachers in the form of teacher materials that link the argumentation content with mathematics standards and state-wide assessments, and a learning progression to engage students in proving tasks. The project will use assessments of mathematics learning and additional data from teachers and students to understand the impact of the argumentation intervention on teachers and students. The project contributes to understanding how students can learn about mathematical practices, such as proving, that can help them learn mathematics better. A significant contribution will be the definition of aspects of proving and descriptions of student outcomes that can be used to measure how well students have achieved these components of proving. The Discovery Research PreK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project is also supported by NSF's EHR Core Research (ECR) program. The ECR program emphasizes fundamental STEM education research that generates foundational knowledge in the field.

The project suggests twelve conceptual pillars that are combined with classroom processes and assessable outcomes to examine the use of argumentation practices in the teaching of eighth grade mathematics content. The investigation of classroom support for argumentation includes research questions that focus on improvement on state-level assessments, students' ability to construct mathematical arguments, and the conceptual progression that supports students' understanding of argumentation and proof. In addition, the study will examine teachers' role in argumentation in the classroom and their perception of potential challenges for classroom implementation. The study will use an experimental design to examine an intervention for mathematical reasoning and proof in eighth grade. The project includes a treatment group of teachers that will participate in professional development including a summer institute followed by instructional coaching over a two year period.